POWRE: Chiral Vinylsulfonium and Oxovinylsulfonium Salts in Asymmetric Syntheses

This POWRE award by the Chemistry Division will allow Dr. Leslie Jimenez to pursue research in synthetic organic chemistry at Rutgers University/New Brunswick aimed at developing intermediates in the synthesis of the clinically important antitumor agent mitomycin C and analogous compounds. Dr. Jimenez will involve both graduate and undergraduate co-workers in this study and these students will be exposed to new areas of synthetic organic chemistry in addition to being trained in a variety of standard synthetic techniques and methods of characterization of organic materials.